PYI: Computational Complexity

This project focuses on the computational complexity of combinatorial problems. The principal goal is the development of new techniques for establishing lower bounds on complexity. A wide variety of computational models will be investigated, including: Boolean circuits, communication complexity, proof systems, and the cell-probe model.